Governor's Invitational Conference

9354084 Davidson Under the leadership of Kerry Davidson (SSI and Teacher Collaborative PI) this project will plan and implement a conference on mathematics and science education in conjunction with the states of Arkansas and Mississippi. The conference will be held during the second week of July, 1993. The tri- state conference will focus on systemic change and highlight exemplars from K-12, higher education, partnerships and policy change from each of the states. It is intended as a regional follow-up to the National Science Foundation Conference of February 1993.***